Integrated Sensing: Mitigating Bottlenecks and Hotspots in Wireless Sensor Systems

The goal of this proposal is to extend the lifetime of wireless sensor networks by addressing the hotspot problem for a given application set. We propose to develop a collection of techniques, each addressing one particular aspect of the problem:
o Ad-hoc routing techniques to distribute the traffic over the complete network rather than along a number of bottleneck traffic lanes.
o Network topology management to equalize traffic density over the network.
o Aggregation and distributed source-coding to compress the traffic flow in the vicinity of the monitor node.
Algorithmic approaches to each of these problems are being proposed. Their impact will be quantified using a combination of analysis, simulation, and hardware prototyping on a smart building scenario.